Mathematical Sciences: Inference and Curve-Fitting in Generalizations of Isotonic Regression Models

In many scientific hypotheses the researcher can specify a directional effect: a treatment is believed to improve health, a new teaching method is believed to improve learning, an increase in dosage is believed to have an increasing effect up to a certain (possibly unknown) toxicity point and then a decreasing effect. Many statistical methods ignore this directional information, which results in a loss of statistical power and efficiency. Our major goal in this research is to develop very general approaches to the computation of estimates and tests along with assessments of the standard errors of the estimates and the error rates of the tests. The research has three main thrusts: First, the analysis of general algorithms such as Dykstra's generalization of von Neumann's alternating projections method. Second, the development and implementation of smoothing and fitting algorithms to use on data that arise in experiments with order restrictions on the parameters. And third, the construction of statistical estimation and testing methods with attendant error rates for research hypotheses that entail directional effects. Often in scientific investigations the researcher expects a directional effect, but cannot justify a specific mathematical function as a relationship. For example, the yield of a crop can reasonably be expected to increase if the amount of fertilizer applied is increased (at least within a certain range). The fact that there is a directional relationship is obvious here, but the exact nature of the relationship is far from obvious. Our goal is to develop methods that make use of directional effects so that more efficient use may be made of experimental data. We will develop computer algorithms to fit data in ways that obey directional effects, and use statistical and mathematical theory to study the properties of our fitting methods.